PostDoctoral Research Fellowship: Travel Grant

Alberto Reyes, a doctoral candidate at the University of Alberta, will travel to Northern Arizona University for 4 days in November 2009. The purpose of the trip is to meet with Dr. Darrell Kaufmann, view his laboratory facilities, give a departmental seminar, and work on a fellowship proposal for the Polar Programs Postdoctoral Fellowships deadline (December 28, 2009). He will also meet with the department chair in order to discuss other mentoring and teaching opportunities at NAU.